Mathematical Sciences: Diagnostics Quarter

This project is a Special Quarter in Statistical Diagnostics at the University of Minnesota. Professor Anthony Atkinson of Imperial College, London will be in residence at the University of Minnesota in the Spring Quarter, 1989, and ten to twelve researchers from outside Minnesota will be invited to participate in an ongoing research colloquium, each visitor spending several days at Minnesota. Support is available for these visitors, with a portion allocated for young Ph.D.'s and graduate students. Several areas will be emphasized, including diagnostics for time series, for multivariate analysis, and for quality control. Among the U.S. visitors who have agreed to participate are R. Carroll, N. Duan, D. Hinkley, W. Meeker, and T. Haste. The activities are directed by Professor Sanford Weisberg of the Applied Statistics Department at the University of Minnesota. Statistical diagnostics concerns methods used to examine assumptions made in the analysis of data and to choose between competing models. Methods have been developed for many types of statistical models.